System Identification for Nonlinear Structural Behavior

The objective of this project is to develop, test, and apply reliable, accurate and efficient algorithms for the identification of structural behavior based upon large-amplitude testing or earthquake response data. The major emphasis of the research will be on the identification and quantification of nonlinear structural behavior.